Theoretical Investigations in High Energy Physics

Research in theoretical elementary particle physics will include work on string theory, the application of ideas from string theory to the investigation of quantum chromodynamics, and other studies of quantum chromodynamics. String theory is the leading candidate for a unified theory of all forces. Quantum chromodynamics is the theory of the strong nuclear force. These investigations are thus very important for our understanding of the elementary particles and the forces through which they interact.